Doctoral Dissertation Research: Phonetics and Phonology of Ju/'hoan

.

9705334

Khoisan languages are interesting to phoneticians and phonologists because of their
large, unique sound inventories. The goal of this project is a detailed description and
analysis of all of the contrastive sounds found in Ju/'hoasi , a Namibian Khoisan
language, as well as a theoretical analysis of the language which will advance universal
linguistic theories. Sounds unique to Khoisan languages are 47 click consonants, as well
as many different types of vowels. Vowels contrast not only by where they are made in
the oral cavity, but also by the quality of voice used. The language also uses four
different pitch levels to convey meaning contrasts, and to make phrasing more
perspicuous and maintain rhythm in spoken language. While many languages in the
world use pitch contrastively, pitch is used somewhat differently in Ju/'hoasi and other
Khoisan languages. In addition, some of the consonants have a depressing effect on
pitch, and thus cause physical perturbations in the speech which may be cognitively
internalized. These will be investigated to determine how much of these effects are
phonological, or cognitively based, and how many are phonetic, or due purely to the
physical quality of the sounds. Complete investigation of the sound patterns of Ju/'hoasi
will require travel to Namibia to record individual sounds, words, phrases and
sentences which contrast by meaning, how they are phrased, and which part of the
sentence is being focused on. The data will be processed both in the field using a laptop
computer, and upon return to the United States, where resources at the Ohio State
University Linguistics Lab will be used to investigate the physical acoustic properties of
the sounds, words and phrases studied. Theoretical analysis will be carried out
throughout the project. The final outcome of this work will be a doctoral dissertation by the student investigator, Amanda Miller-Ockhuizen.